PMSA: New Haven P.M.S.A. "Pathway" Project

PMSA-9353592 Howell, David/Lasaga, Antonio/Cassis, Glenn/McGowan/Rozett, Jean New Haven Public Schools New Haven, CT "New Haven P.M.S.A. "Pathway" Project" The New Haven Public Schools (NHPS) requests $2.5 million in NSF funds for a five-year "Partnership for Minority Student Achievement." The project will increase minority student participation in "gate-keeping" S&M secondary courses and NHPS minority graduate enrollment in postsecondary SEM programs by a factor of five. The project will contain these elements: (1) district-wide K-12 S&M curriculum reform; (2) significant expansion of year-round minority student enrichment activities; (3) creation of a District K-12 "path" for improved minority student achievement (six Pathway Schools); (4) reallocation of technology and other resources to strengthen instruction and student participation; and (5) increased professional development and support for NHPS S&M teachers at all levels. Strong emphasis will be placed on equitable gender participation, parent involvement, and role modeling and mentoring for younger students. The project will focus on "hands-on," interdisciplinary learning in the classroom and complementary discovery approaches in a variety of K-12 enrichment activities. Project partners include: five Yale university schools and departments, Southern connecticut State University, Gateway Community and Technical College, the New Haven Chamber of commerce, the Connecticut Academy (CT SSE), the Connecticut Pre-Engineering Program, the Eli Whitney Museum, the Urban League, and the Center San Jose Center. Bank Street College's Center for Education and Technology will evaluate the project. A total of 3,928 K-12 students and 250 teachers will be served directly through the New Haven PMSA program. Eighty-four percent of NHPS students are African-American or Hispanic, 32 percent live in poverty.